Research Experience for Undergraduates

This grant will continue the Research Experiences for Undergraduates Site in the Physics Department of the University of New Mexico-Albuquerque. Students will be recruited both regionally and nationally. Approximately eight students will be selected to join the ongoing research topics in the Department. Classes will be offered in machine shop and electronics shop practices at the beginning of the summer.